SENSORS: Rapid, Culture-Based Sensor with Direct Electronic Imaging to Track Environmental Microorganisms

0428600
Papautsky
The goal of this research is to develop a culture-based sensor with microfluidic sample preparation and direct electronic imaging for rapid tracking of environmental microorganisms and to demonstrate this new sensor technology as an effective replacement of existing microbial monitoring tools.

The specific aims of the proposed research are three-fold: (1) identify factors that affect selective adhesion and growth of microorganisms on miniaturized, culture-based sensors; (2) integrate culture-based sensor technology with a microfluidic platform and direct electronic imaging to rapidly track microorganisms; and (3) benchmark culture-based sensor in head-to-head comparisons with molecular biology-based tools to identify and quantify Gram positive, mycolic acid containing Actinomycetes (e.g., mycobacteria and nocardioforms) in environmental samples.